Japan STA Program: Active Control of Distributed Parameter Systems

9523678 Fergusson This award supports a 24 month Science and Technology Agency of Japan Postdoctoral Fellowship for Dr. Neil Fergusson at the Mechanical Engineering Laboratory (MEL), Tsukuba, Japan. Dr. Fergusson will work with Dr. Nobuo Tanaka, senior scientist in the Vibration Engineering Division, on a research project entitled, "Active Control of Distributed Parameter Systems." The proposed research will entail the development of innovative control theory techniques and mathematical systems, which, when implemented, provide the engineer with hardware used to achieve a desired output in a particular dynamic environment. With the recent invention of new techniques for the design of controllers, a series of questions need to be explored concerning the reaction of mechanics and materials in unique and changing structural conditions. Therefore, in addition to theoretical research, Dr. Fergusson plans to research applications of the new techniques to practical industrial problems which are of current interest to the international engineering community. ***